MRI: Acquisition of a Three-Laser Heterodyne Frequency Measurement System

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Wisconsin in La Crosse will acquire a three-laser heterodyne frequency measurement system. The measurement system will allow the investigators to measure the wavelengths, frequencies and characteristics (relative intensity, frequency offset and polarization) of newly discovered laser emissions in the far infrared region. This equipment will then be used in conjunction with an existing optically pumped molecular laser (OPML) and Stark spectrometer. With this enhanced laser system, the principal investigators will investigate molecules that are currently of interstellar and atmospheric interest.

The addition of new laser emissions greatly enhances the scope of optically pumped molecular lasers. By opening up the short-wavelength portion of the electromagnetic spectrum, complete coverage of the entire far infrared region is accomplished and a number of spectroscopic techniques will benefit. These studies will involve the active participation of undergraduates at the University of Wisconsin-LaCrosse.